Theoretical/Computational Studies of Few-Body Coulomb Systems

The research focuses on new and efficient computational approaches to calculating the atomic integrals for fully correlated wavefunctions in 3 and 4 body coulomb systems. A small additional project in calculating scattering wavefunctions for atom-atom collisions involving the complex rotation of the internuclear coordinate and resonances, will also be continued.